Connections to NSFNET

This project is designed to provide high-speed data communications and access to the NSFNET to the Veteran's Administration Medical Center and the LDS Hospital which are affiliated with the University of Utah School of Medicine. The connections to the two hospitals will be made via a 23 GHz microwave system. The hub of the microwave network will be at the University of Utah Health Sciences Center. High-speed data communication services will significantly enhance the education and research activities of faculty and students from the University of Utah that work at these affiliated hospitals. To provide high speed access (10 megavits per second) to the NSFNET for researchers, clinical instructors and students at affiliated teaching hospitals in order to: 1. Provide access to resources and services on the NSFNET for faculty, staff and students at affiliated teaching hospitals. 2. Extend access to integrated library system (ILS) services, provide interinstitutional file and document delivery service. 3. Distribute digitized images to medical student computer assisted instruction workstations located in the affiliated teaching hospitals. 4. Transmit digital modalities (CT, MRI and Digitized Radiographs) to support education of medical students and residents.